RTG: Interdisciplinary Training in Cytoskeleton Biology

9602237 This award will provides renewed support to a Research Training Group in Cytoskeleton Biology at the University of Minnesota. Support will be phased out gradually during the tenure of the award as other sources of funding are secured. The faculty group includes members of the departments of Cell Biology and Neuroanatomy, Genetics and Cell Biology, Biochemistry, and Plant Biology. The funds awarded will provide stipends for graduate students and postdoctoral trainees, will support research participation by undergraduates, and will defray part of the cost of the trainees' research. In addition, funds will be used to purchase specialized research equipment to be used by trainees and to bring investigators from other research and academic institutions to the campus for seminars . The cytoplasm of all eukaryotic cells contains a dynamic, fibrous network of actin filaments, microtubules and intermediate filaments that participate in virtually every aspect of cellular form and function. Because of the ubiquity of the network and its role in cellular processes as diverse as gene expression, cell replication, cell division, and cell movement, studies of the cytoskeleton provide an excellent focus for multidisciplinary training in at the forefront of modern biology.